Genesis Support

The principle objective of this project is to support the distribution of GENESIS, the GEneral NEural Simulation System developed over the last several years in Professor Bower's laboratory. In particular the objective is to establish and maintain the necessary hardware, software and personnel to support offsite users of the GENESIS system. The support of offsite users encompasses several areas. First, standard software support will be provided, including access to new versions of GENESIS, existing documentation of both the simulator and specific simulations developed using it, and comprehensive user "bug" reports as they are reported. In addition to supplying the basic GENESIS system to offsite users, Professor Bower and his staff will also provide a centralized source through which both bug fixes and extensions to the GENESIS platform can be distributed. They intend also to establish a centralized site through which researchers will be able to communicate interactively in developing simulations. Finally, due to the modular structure of the simulator and its component parts, they will establish a central site through which new computationally interesting models, simulator graphical tools and basic simulator "elements" can be shared and distributed by GENESIS users.